U.S.-Vietnam Workshop: High-Temperature Superconductivity and Magnetoresistive Materials

9801862 XIAO This award will support five senior and five junior American scientists in condensed matter physics to visit Vietnam for two weeks for the purposes of 1) participating in a joint workshop on high temperature superconductivity, and 2) lecturing and visiting Vietnamese scientific facilities. The American organizer, Professor G. Xiao of Brown University, has selected a team of well-known senior American researchers. The Vietnamese organizer, Dr. Nguyen Van Hieu, is President of the National Center for Science and Technology and Director of the Institute of Materials Science. Through the interactions, which occur during this activity, the American scientists will gain an understanding of condensed matter physics in Vietnam and will form relationships that eventually may lead to collaborative research partnerships.